US-Germany Cooperative Research: Use of Microcosms to Study Redox Chemistry of Contaminated Soils and Sediments

9901301
Patrick
This award supports William Patrick, R. DeLaune, R. Gambrell, and graduate students from Louisiana State University Wetland Biogeochemistry Institute in a collaboration with Heinz-Ulrich Neue of the UFZ Center for Environmental Research in Halle, Germany. The project will focus on the study of substrate factors affecting the methylation and demethylation of mercury in fresh-water lakes in Louisiana and in mercury-contaminated wetlands of the former East Germany. The movement of methylmercury through the food chain in aquatic systems is a serious problem in both the southern US and in Europe. One of the approaches to be taken in the work by the UFZ Center is to use the Wetland Biogeochemistry Institute microcosm technique to determine the solubility and mobility of various inorganic and organic toxic substances. The topic of study is an important environmental problem world wide, making this work timely and of high priority. Important and useful information for the United States will come out of this work and should help in various environmental problems facing the United States today.